SMA/PDOS Collaborative Research: Design, Analysis, and Control of Adaptive Sharing Mechanisms

A wide variety of systems, including web farms, virtual machines,
multi-tasking OSes, GRID computing systems, and sensor networks
improve their accessibility, availability, resilience and fairness by
``sharing'' resources across the consumers they support. However,
research that explores how to share resources generally derives point
solutions, where different resource/consumer configurations require
separately-designed sharing mechanisms. For instance, a scheduler
often has implemented separately a single policy
(e.g., FCFS, PS, Foreground Background, Shortest Remaining Processor
Time), optimized for a particular load setting
and cannot easily be switched to another policy when the situation changes.

This project is developing and analyzing Adaptive Sharing
Mechanisms (ASMs) in which the mechanism used to share resources
adapts dynamically to both the set of available resources and the
current needs of the consumers, such that the system is truly
autonomic. The study has been initiated with a modularization of the ASM
into separate components, defined by the timescale of operation. A
study of the various components using both cutting edge novel control
theoretic and scheduling analyses is being performed.
The design and analysis of ASMs will provide a theoretical
grounding for fully autonomic systems, and the project will lead to
efficient utilization of resources in diverse systems like server
farms, GRID computing and Sensor Networks.